Late Pleistocene/Early Holocene Hunter/Gatherer Occupation of SW Alaska

This archaeological project will investigate two Late Pleistocene/Early Holocene archaeological sites and carry out surveys on the Kisarilik and Holitna River drainages in Southwest Alaska. The purpose is to define the artifact, settlement and land- use relationships of ancient Siberian hunter-gatherer societies which first settled Alaska. This project addresses the need to define the earliest origins of Native peoples and cultures in the New World.